An Integrated Processor Management Scheme for Parallel Computers

The performance of massively parallel multicomputers depends largely on their processor management scheme. Unfortunately, the schemes employed in the current generation of commercial multicomputers do not efficiently utilize the system resources. Processor management is concerned with processor allocation and job scheduling. Processor allocation also affects the interprocessor communication latency. Researchers have addressed these issues independently of each other. However, it is essential to evaluate the combined effect of these issues on system performance. Thus, this project focuses on an integrated study of processor allocation, job scheduling, and interprocessor communication. The research objectives will be accomplished in three phases. The first phase encompasses the design and development of efficient processor allocation and job scheduling schemes while employing a suitable message routing algorithm for interprocessor communication. In the second phase, the integrated effect of allocation, scheduling, and interprocess communication on system performance is to be studied. The third phase of the proposed research is concerned with the experimental validation of these schemes. ***